Mechanisms of Stress Fracture in Human Femoral Neck through a Multiscale Approach

This award supports research to uncover why some bones develop stress fractures while others, which look similar by standard clinical measures, do not. Stress fractures are small cracks that build up in bone under repeated loading, and are common during demanding physical training, such as that of athletes, first responders, and military service members. They occur far more often in women than in men, for reasons of physiology that remain unclear. This project tests the idea that the answer lies within the bone, in the fine structure and material quality of the tissue and in the cellular network that runs through it. Using human bone from the hip and imaging that spans from the whole bone to features far smaller than a cell, the research investigates where fatigue damage begins and what allows it to grow or stop. The work serves the national interest by advancing the national health, providing a scientific foundation for predicting, preventing, and treating these common injuries, and guiding the design of fatigue-resistant materials modeled on the multiscale architecture of bone. It also strengthens the engineering workforce through research training open to all interested students and shares its discoveries through public outreach.

This research advances biomechanics and mechanobiology by explaining how bone, as a hierarchical composite material, resists or accumulates fatigue damage. Its central premise is that whether a microscopic crack remains stable or grows into a stress fracture is governed by the local material quality of the bone and by its architecture, from mineral and collagen, to the cellular network that pervades the tissue, to features nanometers in size. The project first applies physiologically realistic cyclic loading to human hip bones from matched male and female donors and uses full-field optical strain measurement to locate where fatigue cracks form. It then resolves the finer scales: mineral content and distribution are quantified by electron microscopy imaging; fatigue cracks are reconstructed in three dimensions by high-resolution light microscopy and related directly to the surrounding cellular network; and crack interactions with the smallest features are imaged by high-resolution volume electron microscopy. By connecting whole-bone mechanics to tissue, cellular, and nanoscale structure, the project addresses a central question in biomechanics and mechanobiology: how biological architecture governs fatigue failure. The resulting framework also transfers to other mineralized tissues and to the design of fatigue-resistant engineered materials.